Technology in the Mathematics Classroom

This project is bringing today's technology into the mathematics classrooms at North Harris College and giving their instructors the opportunity to enhance and expand instruction techniques and teaching philosophies. They are bringing technology into the classroom by: 1) placing, in each of our five classrooms, a computer that projects its images through a projection panel hooked to a cool-running projector and Personal Science Laboratory (PSL) Explorer software and hardware, 2) having available five classroom sets of TI-85 graphics calculators with overhead viewers. Their primary goal is to incorporate technology into every mathematics course, not just as a drill and practice, but also as an innovative tool for discovery, enrichment, deep thinking, and understanding will allow for a variety of approaches to learning.